MRI: Development of Enhanced Radar Instrumentation for Improved Characterization of Coastal Hydrodynamics

0216176
Bonner
Texas A&M University-Corpus Christi, in collaboration with the University of Texas at El Paso and CODAR Ocean Sensors, proposes to extend High Frequency (HF) Radar data processing and hardware to improve the measurement of surface currents and wave conditions, and to incorporate directly into radar data output both transport and water quality model coefficients. The collaboration between these Minority Institutions and Industry partner will extend HF-Radar applications to predict the origins and fates of oil spills, water quality, thermal and contaminant plume tracking, study coastal processes, and develop improved techniques of real-time management, display and distribution of HF-Radar data. In addition, the extended HF-Radar system will improve navigational safety for Texas ports and waterways, which involve complicated hydrodynamic systems with shallow enclosed, embayment features.